U.S.-Indonesia Cooperative Research: A Quasi-Three Dimensional Groundwater Optimization Model of the Jakarta Basin

This proposal requests funds to permit Drs. Brad A. Finney, and Robert Willis, Department of Environmental Resources Engineering, Humboldt State University, to pursue with Professor Idris Maxdoni Kamil, Institute of Technology, Bandung, Indonesia, and scientists/engineers at BPPT (Agency for the Assessment and Application of Technology), Jakarta, for a period of 24 months, a program of cooperative research to develop a quasi-three dimensional ground water optimization model of the Jakarta groundwater basin. The optimization model will be used to (1) identify pumping and recharge schedules to satisfy water targets and control salinity intrusion and (2) determine the cost and environmental trade-offs associated with additional ground water development in the basin. The research will explore the use of quasilinearization, projected Lagrangian methods, and differential dynamic programming methods for solution of the optimal control model. The Indonesian scientists will be responsible for the development of a ground water data base for the basin and a ground water monitoring program. The U.S. scientists will develop a discrete time optimal control model of the Jakarta aquifer system. The principal water supply of Jakarta, Indonesia's capital and largest city, is ground water which provides more than 80% of the daily water demand for the region's 6.5 million residents. The overdevelopment of ground water in this region over the past decade has produced declining water levels and degraded the water quality of shallow aquifers in the Jakarta coastal plain. The research will develop new techniques and tools for the optimal management of the system and will be used to investigate the field performance of a large scale ground water optimization model. The collaborators are highly respected scientists in the field of this research. The present project will allow them to combine their talents and interests for mutual benefit. This project is relevant to the objectives of the Science in Developing Countries Program which seeks to increase the level of cooperation between U.S. scientists and engineers and their counterparts in developing countries through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit.